Computer Science, Engineering, and Mathematics Scholarship Program

This scholarship project is a collaboration between Horry-Georgetown and York Technical Colleges. Both institutions have nationally recognized, advanced computer and engineering technology curricula and have a specific need to assist academically prepared students to complete their two- year degree in the prescribed time. All of the participating programs are academically strenuous and require a full summer semester between the freshman and sophomore years. Through the implementation of the Computer Science, Engineering, and Mathematics Scholarship (CSEMS) program, the colleges are identifying up to forty students of academic merit who are at risk of not completing their degree requirements due to financial need, and to support and insure their graduation. The goals of the project include increasing the retention rate of students enrolled in the programs, improving the higher education placement rate of participating students, and strengthening partnerships between the colleges and the area industries who employ the graduates. This project is extending a one-year award from the prior year.